Computer Based Instruction in Mathematics

Computer applications will be added to the Calculus and Mathematics for the Liberal Arts courses. Calculus students will use the graphing, symbol manipulation, numerical calculation capabilities of Macintosh computers to better understand the concepts of the Calculus. The redesigning of the Mathematics for Liberal Arts course will center on the use of mathematics and computers in real world situations. The grantee is providing an equal sum for the equipment obtained from non-Federal sources.